Undergraduate Research Participation in Electrical Engineering

The Electrical Engineering Department at the University of Maine offers ten undergraduate students a grant of $3,000 each plus an appropriate subsistence allowance to participate in their REU Site. The available research projects include: 1) Microwave Acoustic Solid State Sensors, 2) Robotics, computer Vision and Neural Processing, 3) Wideband Signal Processing Components for Communications Applications, 4) Motion Control, 5) Microprocessor Applications, 6) Environmental Noise Measurements, 7) VLSI Based Neuronal Models, 8) Power Systems Applications. Students selected for the REU program have a high degree of initiative and independence of thought in both laboratories and course work. Student research projects are chosen to match the student's interest and educational level. At the program culmination a written report and an oral seminar are required from the student.